CSBR: Living Stocks--Interim support for a genetic stock center for Peromyscus

An award is made to the University of South Carolina in support of The Peromyscus Genetic Stock Center (PGSC), which has supplied pedigreed, disease-free animals to the national and international research community since 1985. Peromyscus (deer mice) are the most widely distributed mammals in North America and are used in a wide variety of studies PGSC animals are provided to researchers at educational, industrial, and governmental institutions. The PGSC also has a goal of improving Peromyscus as a research model. Efforts include development of a genetic map with ~400 genetic markers placed on all Peromyscus chromosomes, whole genome DNA sequence of four species (near completion) and improved reproductive technology. These resources enable efforts to identify the genetic basis of important characteristics such as habitat adaptation, mating behavior (e.g. monogamy), genetic changes upon exposure to environmental toxins and aggression, as well as other traits.

The PGSC supports undergraduate and graduate research and training at the University of South Carolina and other institutions. Research using these resources has been important in discovering genetic basis of altitude adaptation, determining behavioral effect on offspring of parents exposed to environmental toxins, found that repetitive movement disorder is mimicked in Peromyscus, and discovered genes controlling growth and development. This project continues to have broad significance in supporting the research endeavors of many scientists.